Manufacturing and Computational Geometry Workshop, April l994, New York University

9400502 Yap This grant will support a workshop on manufacturing and computational geometry, to be held during April 1-2, l994 at New York University, New York, NY. The purpose of this workshop is to bring together some key members of the manufacturing community and the computational geometry community. This is a strategic meeting to discuss current directions in the two communities, and identification of future joint programs and activities for the application of computational geometry to advanced manufacturing. *** ~ ! P ' ! P ' F ; Times New Roman Symbol & Arial Tms Rmn " Helv h % % ' Joyce Muir Joyce Muir